Computer Analysis and Simulation of Information Systems

A file server system for an Information Systems Laboratory will be provided for researchers at Stanford University in the Department of Electrical Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of optical processing, communication channels, signal quantization and compression, and related areas.